Spatial Data Acquisition and Processing

The efficient processing of spatial data plays an important role in solving problems in computer vision, robotics, and computer graphics. The acquisition of spatial data as well as its processing will be investigated. The acquisition will be concerned with data useful for cartographic applications (e.g., terrains) and maps in general. In the case of maps, the interest is in the acquisition of relative spatial information (e.g., based on a map's legend) rather than precise information (e.g., locations of cities, roads, etc.). An investigation into the concept of a hypermap and the related representation issues will be conducted. Other problems include the investigation of hierachical surface representations, large spatial databases (especially those including line segments). Attempts will be made to parallize any algorithms that are developed and they will be tested on the Connection Machine.